Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Institute of Statistics and Decision Sciences (ISDS) at Duke
University will purchase high-speed computing equipment to be
dedicated to support of several linked projects in statistical and
computational methodology for bioinformatics. Specific research
projects involve stochastic modeling of biomolecular sequence and
structure, models and computation for large-scale functional
genomics, and statistical modeling for gene characterization studies.
The grant will provide high-throughput networking equipment, high-speed
numerical servers, a file server, and a high-throughput ethernet switch
and connectors. This equipment, together with desktop machines providing
platforms for local, non-numerically intensive computations, will provide
a numerical/file server cluster for the three faculty investigators,
post-doctoral associates and graduate students working on the proposed
bioinformatics projects.